Modeling Biomolecular Transport Processes

Elston
0075821
The broad goal of this project is to gain a mechanistic
understanding of energy transduction in biomolecular transport
processes. The project focuses on three specific systems: the
bacterial flagellar motor, the motor protein dynein, and protein
translocation systems found in membranes of the endoplasmic
reticulum and mitochondria. While the biology involved in these
systems is very different, the same mathematical techniques are
applicable for analyzing theoretical models of all three. To
model these systems requires the use of Langevin or stochastic
differential equations. The randomness in these equations comes
from two sources, thermal diffusion and chemical kinetics.
Thermal fluctuations are characterized by the diffusion
coefficient, which can be measured experimentally, and many of
the important reaction rates are known from biochemical studies.
In addition to molecular collisions, electrostatic interactions
are the other dominant forces involved in these transport
systems. If available, structural data are used to determine the
relevant electrostatic potentials. Once model equations for the
systems have been developed, numerical and analytical techniques
are used to compare their behavior with experimental data. The
final phase of the analysis is to use the mathematical models to
produce experimentally testable predictions.
Biological molecular motors are nanometer-sized engines that
use chemical energy to generate force. A well known molecular
motor is myosin, which is the protein responsible for muscle
contraction. Other examples include the flagellar motor, which is
used by bacteria for swimming, and dynein, which produces the
force necessary for cilia motion. The broad goal of this project
is to gain a mechanistic understanding of force generation in
both these systems. Current experimental techniques are allowing
biophysicists to study molecular motors at the single molecule
level, thereby allowing the mechanical properties of motor
proteins to be measured. These new physical data in conjunction
with structural data provide the impetus for renewed theoretical
investigations into molecular motor function. An important reason
for performing a mathematical analysis of force generation is
that it allows a quantitative comparison between experimental
data and model behavior to be made. The results of such a
comparison not only are important for model validation, but also
can be used to uncover errors in the assumptions underlying the
model. However, the significance of mathematical modeling goes
beyond model validation and lies in its predictive power. Once a
theoretical model has been developed that is consistent with
current experimental data, it is straightforward to extend the
analysis to include situations that have not yet been
investigated in the laboratory. If model predictions are borne
out by experiment, further confidence in the reality of the model
is gained. For the systems under consideration in this project,
this means a mechanistic understanding of force generation has
been achieved. From a technological standpoint, the results of
these investigations should be relevant for designing and
fabricating manmade nanomachines.